New Reactions of Organozirconium Complexes

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program is made to Dr. Daniel A. Straus of the Chemistry Department, San Jose State University to study zirconium-based alkylation of organic substrates. Alkylzirconocene compounds in the presence of strong bases promote either alkylation of aldehydes and ketones to form alcohols or abstraction of alpha-protons to yield enolates. Straus will expand the range of such reactions and investigate the mechanism by which they occur. The reactions may involve the formation of an anionic zirconium complex or the production of a mixed alkoxide alkyl compound. %%% Alkyl zirconium compounds have been extensively studied under acidic conditions because of their utility in olefin polymerization and metathesis. Here, the compounds will be studied under basic conditions, in which preliminary studies have shown they can be effective in some circumstances in forming carbon-carbon bonds. There is potential for the research to identify some reactions that will be valuable for synthetic organic chemistry. The project will be carried out primarily by undergraduate students and will provide an opportunity for them to learn a variety of advanced laboratory skills.